CAREER: Higher-Order Calculations for Precision and New Physics Studies at the Large Hadron Collider

This project will improve theoretical predictions within the SM and
its supersymmetric extensions. These improvements are necessary in
order to fully exploit the potential of the LHC to unravel the origin
of symmetry breaking and mass generation, and to search for and
disentangle signals of new physics, such as SUSY. The project involves
the calculation of higher order effects in quantum field theory
(radiative corrections), and the incorporation of these into
Monte-Carlo simulations of LHC processes, involving the Higgs and
electroweak gauge sector, the top quark, and SUSY particles.

The education and outreach component of this project consists of three
parts: Firstly, a permanent, interactive physics exhibition will be
established, which will integrate Art with Science, to engage the
general public in a dialog about physics in an inspiring and
non-intimidating setting. High-school students and their teachers,
both scientific and artistic oriented, will be actively involved in
the construction of new exhibition displays. Secondly, 'Peer
Instruction' will be implemented in introductory college physics
courses, and its effectiveness will be measured. Finally,
undergraduate students will be provided with an opportunity to
experience and contribute to particle physics research, allowing them
to acquire skills applicable to areas within and beyond the scope of
particle physics.